Extremal Kaehler Metrics and Geometric Flow Equations

DMS-0406346
Title: Extremal Kaehler metrics and geometric flow equations
PI: Xiuxiong Chen, University of Wisconsin (Madison)

ABSTRACT

In the early nineties, S. T. Yau conjectured that the existence of
Kaehler metrics with constant scalar curvature is related to the stability of
the underlying polarized manifold. In recent years, striking progress has
been made in this direction. In 1997, G. Tian proved that any
Kaehler-Einstein manifold with positive scalar curvature is K-Stable. In
2001, S. K. Donaldson proved that an algebraic manifold with discrete
automorphism group and Kaehler metric of constant scalar curvature is Chow stable.
Very recently, in a joint work with G. Tian, the proposer proved that
the existence of Kaehler metrics of constant scalar curvature implies Semi-K
Stability of the K energy with respect to the given cohomology class.
Inspired by these results, the proposer wants to study a network of problems
centered around the existence of extremal Kaehler metrics (which includes
constant scalar curvature metric as a special case), stability of polarized Kaehler
manifold, and other related problems. The main ideas of solving these problems
consist of improving regularity for geodesics in the space of Kaehler metrics in
the sense of T. Mabuchi, of understanding the long-time existence of the Calabiflow,
and of the convergence of the Kaehler-Ricci flow. These ideas are related to different
mathematical fields but the proposer believes that they are all very promising to solve the Conjecture of Yau (in particular to solve the problem of the existence of Kaehler-Einstein
metrics on Fano manifold). The proposer is going to work on the problems through
these ideas.

The problem of the existence of Kaehler metrics of constant
scalar curvature, being the key problem in differential geometry, has
strong impact to other fields of sciences like physics. According to Albert
Einstein, the theory of gravity can be interpreted as the geometry of
space-time. Thus the research in differential geometry is crucially important in
physics and cosmology. The research proposed also has impact in string theory,
which is the theory of unifying all four basic forces of the Nature. The
proposer's work, together with the works of other mathematicians and physicists,
helps in understanding our Universe.